Symplectic and Contact Geometry and Topology

9971965
Eliashberg
The central theme of this project is Symplectic Field Theory.
This is a new area that is yet to be developed. It emerged recently as
a generalization of Contact Homology Theory. The project has several
goals. One is to define new invariants of contact manifolds and their
Legendrian submanifolds and develop tools for computing these
invariants. The second goal is to explore new algebraic structures
emerging from Symplectic Field Theory. The third goal is to construct
new enumerative invariants in Symplectic Floer theory that are closely
related to three-dimensional Seiberg-Witten theory but may be easier
to compute. Finally, Symplectic Field Theory should permit the
development of a relative analog of Gromov-Witten invariants for
symplectic manifolds with contact boundaries, and thus provide new
tools for computing Quantum Cohomology of symplectic manifolds.
Symplectic Geometry and Topology has proven to play an important
role in different areas of Mathematics and Theoretical Physics. The old
and newly discovered areas of interactions between Symplectic Geometry
and Topology, Hamiltonian Dynamics, Low-dimensional Topology,
Algebraic Geometry, Quantum Field Theory, and other fields generate a
host of important problems. A systematic development of Symplectic
Field Theory, which is the main goal of the current project, should
provide answers to some of these problems, as well as open new areas
of applications of the field.
***